EAGER: Origin and Physiological Consequences of a Neoplasm Outbreak in Antarctic Fish

Antarctica’s native animals face increasing stressors from warming oceans. A key unanswered question is how Antarctic life will respond. If warmer waters contribute to fish disease susceptibility, then iconic Antarctic predators they support, including penguins, seals, and killer whales, will suffer. A recent scientific cruise on the Antarctic peninsula encountered a population of crowned notothen fish that were plagued by pink, wart-like tumors that covered 10% to 30% of the body surface on about a third of the animals. Similar tumors had not previously been reported, suggesting that this might be a new disease that threatens Antarctic fish. The goal of proposed work is to identify the biological origins of the tumor and how it affects cell function and organismal physiology. The work is potentially transformative because it studies what might be a harbinger of Antarctic fish responses to global climate change. The project has several Broader Impacts. First, it will publicize the tumors. Because Antarctic researchers have never reported a tumor epidemic, the community must become aware of the outbreak and the tumor’s distinct diagnostic features. Second, dissemination of project results will stir further research to determine if this is an isolated event or is becoming a general phenomenon, and thus a broad concern for Antarctic ecosystems. Third, assays the project develops to detect the disease will enhance research infrastructure. Finally, work will broaden the nation’s scientific workforce by providing authentic research experiences for high school students and undergraduates from groups underrepresented in scientific research.

The overall goal of proposed work is to identify the biological origins of the neoplasia and how it affects cell function and physiology. Aim 1 is to identify the pathogenic agent. Aim 1a is to test the hypothesis that a virus causes the neoplasia by isolating and sequencing viral nucleic acids from neoplasias and from animals that are not visibly affected. Aim 1b is to test neoplasias for bacteria, fungi, protozoa, or invertebrate parasites not present in healthy skin. Aim 2 is to learn how the disease alters the biology of affected cells. Aim 2a is to examine histological sections of affected and control tissues to see if the neoplasias are similar to previously reported skin diseases in temperate water fishes. Aim 2b is to examine the function of neoplastic cells by RNA-seq transcriptomics to identify genes that are differentially expressed in neoplasias and normal skin. Achieving these Aims will advance knowledge by identifying the causes and consequences of an outbreak of neoplasias in Antarctic fish. Proposed work is significant because it is the first to investigate a neoplasia cluster in Antarctic fish.